Oceanographic Instrumentation CY 2001

0101595
Findley
This award to University of Miami's Rosenstiel School of Marine and Atmospheric Sciences provides instrumentation to improve the shared-use scientific instrumentation available to researchers using the four research ships operated by University of Miami and the Harbor Branch Oceanographic Institution. These four vessels, R/Vs Seward Johnson, Seward Johnson II, Edwin Link and Walton Smith, are all operated as part of the University-National Oceanographic Laboratory System research fleet. The specific instrumentation supported by this award includes a variety of environmental sensors, replacement shipboard computers and related tape and disk storage, and water sampling bottles. These improvements will be of substantial advantage to marine scientists using the ships in their research during 2001 and future years.
***